New Directions in Catalysis Science and Technology

A committee is formed under the auspices of the Board on Chemical Sciences and Technology of the National Research Council to prepare a short report on research frontiers in catalytic science and technology. It is intended that this report will be instructive for research students, scientists and engineers in related areas, research managers in industry and government, and science policy officials.